Midwest Dynamical Systems Conferences

DMS 0405160

PI: Clark Robinson

Northwestern University

Midwest Dynamical Systems Conferences

ABSTRACT

This award will hold conferences concerning various aspects of dynamical systems for the two years beginning September 2004. We will cover expenses of
approximately 30 participants each of the two years. After covering some expenses for speakers, the priorities will be to support graduate students and nontenured researchers.

The Midwest Dynamical Systems Group has fostered the interaction of a
diverse group of people working in various aspects of dynamical systems,
from topological to analytical, and from theoretical to applied.
We have also actively supported the research of younger researchers. This program has been active since about 1970.

Speakers for 2004-5 include Robert Williams (University of Texas), Robert
Devaney (Boston University), Carl Simon (University of Michigan), Michal Misiurewicz (IUPUI), and Hassan Aref.